High Performance Network Connections for Science and Engineering Research - HPNC: HPNC for Bradley University in Science and Engineering Research

The proposal plans to connect Bradley University to vBNS via the MREN GigaPoP in support of research needs such as data mining, remote supercomputing, archival storage and retrieval of biomedical images, data transfer, and others.